EPWG: Bridging the Gap

9450006 Sikes This project, Bridging the Gap, is designed to empower local Girl Scout volunteer facilitators and leaders to plan, organize, and direct SEM activities at the grass roots level. This will be done by providing materials, resources, and training in SEM interest areas and recognition programs. The specific goals of the project are (1) to increase the number of registered girls participating in SEM activities presented in the Contemporary Issues booklet Into the World of Today and Tomorrow, and in other recognition programs included in the SEM interest area in Girl Scouting. (2) to provide training, materials, and support to Girl Scout Troop leaders so that they can encourage girls in their troops to participate in SEM activities; and (3) to establish a community support system at the service unit level using the volunteer SEM facilitator to implement SEM activities for girls at the local level. Through a national dissemination plan approximately 2,647,000 Girl Scouts in 332 Girl Scout councils can be impacted. ***